A Unified Framework for Large Scale Scientific Computing

This research builds a unified computational framework for scalable and high
efficiency solution of elliptic partial differential equations. The
investigators develop a novel high-order multiscale multigrid computation
methodology, which combines high accuracy computation and fast computing methods
in a seamless way. This research work may impact many computational science
and engineering and industry modeling and simulation applications. As U.S.
high-tech industry moves from experiment-based design and development to
computer-assisted design and development, higher performance numerical
methods and faster computer simulation techniques will benefit U.S. industry
by enabling design and development engineers to conduct quick verification
to test their new ideas on computers, before committing to expensive
experiments. These technologies are essential for the U.S. industry to
maintain its leadership position in the competitive world market. Graduate
students, including members from underrepresented groups, are trained to
become the next generation researchers and educators with solid scientific
computing skills.

The technique simultaneously advances the numerical solution
of partial differential equations in two fronts. One is to compute high
accuracy solution by using high-order discretization methods, another is
to compute the discrete solution in a minimum amount of computer time
by using the fastest sparse linear system solvers. This unified framework
advances the two fronts collectively by fusing the ideas and advantages
of multiscale discretization and multigrid computations, to achieve
the ultimate goal of computing accurate numerical solution at the
minimum computer costs. It is the convergence of years of research work
by many researchers in several different areas. This computational
framework possesses high accuracy, high speed, high scalability, and
delivers optimal efficiency for computing the numerical solution of
elliptic partial differential equations.